Direct Digital Design and Manufacturing (D3M) from Massive Point-Cloud Data

The research objective of this award is to develop mathematical foundations, algorithmic infrastructure, and prototype software that can process massive point-cloud data directly, accurately and efficiently into suitable geometric form for product development use. The new approach is based on a moving least-squares (MLS) formulation that defines a continuous surface directly from a set of points. The MLS surface has many unique properties, such as projection procedure, simple implicit form, Cn continuity, and local computing. This research would lead to a paradigm shift in geometric processing techniques, from laborious intermediate surface reconstruction with human intervention to enabling D3M from massive point-cloud data. These new techniques are based on the MLS surface and include: a) analytical formulae for differential geometric analysis; b) Morse theory based methods for uncovering its topological structures; and c) fundamental algorithms enabling point based geometric computing with guaranteed geometric accuracy and topological robustness.

If successful, this research will result in computational tools enabling D3M from massive point-cloud data. Specifically, direct, accurate and adaptive processing would lead to dramatic time reduction in shape modeling in product design, improved product dimensional accuracy, and shortened product development cycle. Through industrial collaboration with both sensor vendors and point data users, this research can unleash the full potential of 3D scanning for a host of manufacturing industries such as aerospace, automobile, die and mold, mass customization and biomedical applications. Through its integrated research, education and outreach activities, this project will provide advanced knowledge in geometric processing and D3M for students from high schools to graduate schools and will increase domestic students’ interest in science and engineering and therefore strengthen our competitiveness in the global workforce.